Water Analysis Laboratory for Undergradaute Instruction

The Water Analysis Laboratory is used by undergraduates for coursework in water analysis, required of environmental science majors. The central piece of equipment in this laboratory is an atomic absorption spectrophotometer. Use of this instrument is essential for students learning the application of basic chemistry to the study of environmental problems. Many of the student senior research projects in environmental science, as well as in biology and geology, rely on atomic absorption spectrophotometry as the primary means of collecting data by conducting chemical analyses of water, rock, soil, plant and animal samples. The grantee provides funds for this project that are an equal match for the NSF award.